Great Plains Operator Theory Symposium (GPOTS) 2016

This award provides funding to help defray the expenses of participants in the "Great Plains Operator Theory Symposium (GPOTS) 2016" that will be held from May 23-27, 2016, on the campus of the University of Illinois at Urbana-Champaign.

This conference is the thirty-sixth installment of the Great Plains Operator Theory Symposium (GPOTS), a series that annually brings together a diverse group of over one-hundred mathematicians whose primary research interests are in operator theory or the theory of operator algebras. Some of the main foci of the 2016 event are the following: deformation/rigidity theory; free probability; recent advances in operator theory; classification of C*-algebras; noncommutative geometry; noncommutative probability; C*-algebras and dynamical systems; operator spaces and their applications. The conference program provides ample opportunity for graduate students, postdocs, and other young scientists to present their work.